SBIR Phase I: Improved memory during sleep at home with a wearable EEG device for tailored stimulation of slow oscillations

This Small Business Innovation Research (SBIR) Phase I project improves memory for the elderly. Memory loss is a major concern of an aging population. The $29 B global memory enhancement market comprises supplements, training software, and drugs, although evidence of efficacy is limited. This project will create a user-friendly sleep headband with audio stimulation to improve memory. The solution will create a new category of non-invasive medical devices to benefit people in clinical, home, and professional settings.

This Small Business Innovation Research (SBIR) Phase I project demonstrates the feasibility of a wireless electroencephalogram (EEG) headband that increases memory consolidation during slow-wave sleep activity at home. Audio stimulation during slow-wave sleep activity using polysomnogram equipment has been previously demonstrated to enhance memory retention by facilitating memory consolidation. The envisioned headband acquires high quality EEG data to sense slow-wave brain wave activity and provide synchronous audio stimulation. The anticipated project outcomes are: a) a wireless sleep headband designed for comfort and usability, b) demonstration of enhanced slow-wave brain activity during sleep, and c) evidence of meaningful improvements to memory retention measured by standard clinical assessments.